SUPERNOVA: A Film within the NOVA Series

The WGBH Educational Foundation and the NOVA production team will produce an hour-long special program in the NOVA series on the remarkable scientific response to Supernova 1987A, the most significant supernova to be observed since 1604. Responding rapidly to this unique opportunity, they will capture the spirit of science in formation, through video and audio interviews with many of the involved research scientists in their laboratories and observatories around the world during the critical time period when there are as many questions as answers about the event. They will continue to cover the scientific response into the summer and early fall, including scientific meetings that are expected to provide clarification and explanation of the supernova's behavior. They are responding with insight and speed to a rare opportunity, and will match National Science Foundation funds with $300,000 of their own production funds to produce this program. NSF support will be used to insure that the coverage land treatment of the event will be substantive and accurate, and rich enough in detail to illustrate the processes of scientific discovery, research cooperation, and debate and dialogue that leads to understanding. The resulting program will be seen by the more than 12 million viewers of the NOVA series, as well as by tens of thousands of classrooms in high schools and colleges. Educational materials will be produced to accompany the program. An award of $50,000 for FY87 is recommended.